Sensory Reception in Crustacean Zooplankton

9521375 Hartline PROPOSAL ABSTRACT The roles of mechanoreception in predator detection by epipelagic and mesopelagic calanoid copepods (Acartia, Labidocera, Undinula, Euchaeta, Pleuromamma, and Gaussia spp.) will be evaluated from morphological, neurophysiological and behavioral perspectives. The hypothesis to be tested is that escape behavior is triggered by mechanical stimulation of two specific neurons (GAMs) in each antenna. A second focus will be a comparison of conditions eliciting bioluminescent discharge with conditions leading to the stereotypic rapid escape (="jumps"). ***